Variational methods for materials science, mechanics, and imaging

Leoni
DMS-1007989

The central theme of this project is the application of
modern calculus of variations to materials science, mechanics,
and imaging. The principal investigator emphasizes the following
specific topics:
- Material Voids in Elastic Solids with Anisotropic Surface
Energies. Here he studies how the qualitative features of the
equilibrium shape of the void depend on the smoothness and
convexity (or lack thereof) of the interfacial energy.
- Evolution by Surface Diffusion. The principal investigator
studies the short-time existence and regularity of solutions of a
model of second-phase particles and material voids in a linearly
elastic solid.
- Non-Local Operators for Image Recovery. Here he studies
regularity and qualitative features of solutions of a non-local
model for image and signal processing proposed by Gilboa and
Osher. He also takes up problems in water waves and
micromagnetics.

The central theme of this project is the application of
modern calculus of variations to materials science, mechanics,
and imaging. When an elastic material is subject to stresses, it
can stretch and develop voids within the material; the shape of
the voids affects other properties of the material. The
principal investigator studies how the shape depends on the
energy at the interface between the material and the void. The
movement of interfaces by means of surface diffusion is not well
understood when the interfacial energy is highly anisotropic.
The investigator studies this problem, focusing on the short-time
behavior; rigorous results here improve our understanding of
various behaviors of materials. He also considers problems in
image processing, water waves, and micromagnetics. The results
and methods developed in the project are incorporated in new
graduate courses, and some are included in a series of books that
the investigator is writing in collaboration with I. Fonseca.
Graduate students are involved in the project.